SCI: IRNC: TransLight/Pacific Wave (TOPS-PW)

The TransLight project proposes to build on existing connections developed over the past 7 years. TransLight has two major components proposed separately: Translight/Starlight for connections in Chicago, New York, and Amsterdam, and TransLight/PacificWave serving connections between Seattle and Los Angeles and key countries around the Pacific Rim. This proposal deals specifically with Pacific Wave (PW).

This proposal funds equipment and services to support multiple "landing points" on the West Coast for high speed connections to the Pacific Rim. Specifically, exchange points at the Pacific Northwest Gigapop in Seattle, and the "LAAP" exchange point in Los Angeles. These points-of-presence will support the homing of two 10-Gigabit per second circuits connecting Australia's R&E communities through Hawaii, with physical connectivity at the exchange points allowing flexible uses and sub-layer configurations ranging from the network layer down to the physical layer. Through these connection services, the U.S. R&E community will have high-speed and robust connectivity from the U.S. mainland through Hawaii and to Australia. The proposal claims their approach is based not just on backbone connectivity, but end-to-end connectivity to lead with new technologies and stimulate collaborations, especially with leading domain scientists at end sites.